Developing Teacher Leaders in Middle and High School Science

Howard University seeks funding for a three-year Teacher Retention and Renewal project for 180 middle school and high school teachers in Washington, DC, public schools. The project will develop teacher leaders with advanced skills and understanding in Science, Mathematics and Technology (SMT) education content and pedagogy who will help strengthen ongoing professional development in schools through the mentoring of other training courses for teachers in life science, earth science, biology, chemistry and physics. Scientists and science educators will teach the courses. The courses will be grounded in constructivist learning theory and the activities will be interdisciplinary and inquiry-based. The teachers will receive graduate credit.